Molecular Organization of Mammalian Viruses

9507102 Burnett The overall goals are to explore the principles by which mammalian viruses are constructed from their constituent proteins, and to develop methods for imaging very large biological structures at high resolution. A major aim is to determine the complete molecular structure of the adenovirus virion. In previous work, the high resolution X ray crystallographic structure of trimeric hexon (polypeptide ll), the major coat protein, was used to interpret images from electron microscopy (EM) and develop a model of the capsid. A three dimensional image reconstruction using cryo EM then revealed the virion at 35 A resolution. As the shape of the EM hexon is in excellent agreement with that seen by X rays, images from the two methods could be combined to produce difference images. These defined the shapes and locations of the vertex proteins, penton base (Ill), and fiber (IV), and three minor "cementing" proteins (Illa, Vl, and IX). The current project continues the attack on this challenging structural problem. High resolution EM data will be collected to extend the resolution of the reconstruction. Novel maximum entropy refinement methods will be used to improve the reconstructed image and obtain more accurate difference images. The hexon positions in the capsid will be refined and their interactions analyzed to understand the chemical forces important for hexon hexon recognition and stability of the virion. The adenovirus study emphasizes that cementing proteins are an important new class that has received little previous attention. These proteins resolve the conflicting requirements for weak interactions between the components of a large macromolecular structure to ensure its accurate assembly, and for the strong bonding necessary for its ultimate stability. Their use in viruses suggests that novel "anti structural" drugs could act by stabilizing a virus particle to prevent uncoating, or destabilizing the particle to make it vulnerable to denaturing force s in the environment. The combined approach will be extended to a second viral system, bacteriophage PRD1, that has an unusual internal membrane. PRD1 shows remarkable similarities with adenovirus in its capsid packing and the shape of the major coat protein, P3. The crystal structure of P3 will be determined and correlated with the emerging EM structure of PRD1. %%% The overall goals are to explore the principles by which mammalian viruses are constructed from their constituent proteins, and to develop methods for imaging very large biological structures at high resolution. One aim is to determine the complete molecular structure of the adenovirus virion. In previous work, the structure of the coat protein, hexon, which was known from X ray crystallography, was used to interpret electron microscopy (EM) images and develop a model for the virus. This was confirmed and extended using cryo EM and image reconstruction methods. The images of hexon, obtained from X ray crystallography and electron microscopy, were combined to define the shapes and locations of several other viral proteins, including three minor "cementing" proteins. The current project continues the attack on this challenging structural problem by extending the detail at which the virus is imaged. Novel mathematical methods will be used to improve the images. The interactions of the molecules in the virion will be analyzed to understand the chemical forces important for its stability. The adenovirus study emphasizes that cementing proteins are an important new class that has received little previous attention. These proteins resolve the conflicting requirements for weak interactions between the components of a large macromolecular structure to ensure its accurate assembly, and for the strong bonding necessary for its ultimate stability. Their use in viruses suggests that novel "anti structural" drugs could act by stabilizing a virus particle to prevent uncoating, or destabilizing the particle to make it vulnerable to denaturing forces in the environment. The combined approach will be extended to a second viral system, bacteriophage PRD1, that has an unusual internal membrane. PRD1 shows remarkable similarities with adenovirus in its capsid packing and the shape of the major coat protein, P3. The crystal structure of P3 will be determined and correlated with the emerging EM structure of PRD1. ***